Science in Developing Countries Program: The Systematics andEvolution of the Genus Coreopsis (Asteraceae) in South America

This project will support collaborative studies in systematic biology by Dr. Daniel J. Crawford of Ohio State University, Dr. Edwin B. Smith of the University of Arkansas and Dr. Aundio Sagastegui of the Universidad Antenor Orrego de Trujillo, Peru. The project will initiate studies of the systematics and evolution of South American representatives of the Genus Coreopsis (Asteraceae). Thirty four species are described from South America with the vast majority occurring in the northern Andes of Peru and all assigned to the sect. Pseudoagarista. Little is known about the species beyond the alpha-level, with most of the taxa described primarily on leaf morphology. The collaborative effort will involve the following methods: field studies to assess morphological variation within and among the described species, specimen collection to document this variation, gathering of floral buds and collecting seeds and dried leaf material; determination of chromosome numbers for each species; the use of enzyme electrophoresis to estimate genetic variation within and divergence among species; and the use of morphology and chloroplast DNA restriction site variation to construct phylogenic hypotheses for South American Coreopsis and for all of Coreopsis. The project will provide insight into systematic-evolutionary aspects of the genus Coreopsis and will allow a synergistic relationship to develop among the three well- qualified investigators. The project will present resources and research opportunities currently unavailable to the Peruvian principal investigator and will involve Peruvian students. Since this type of research also provides for the rapid exchange and dissemination of knowledge, the project will fulfill the goals of the Science in Developing Countries Program.